Charge Transport and Storage in Nanoscaled Nonvolatile Semiconductor Memory (NVSM) SONOS Devices

We propose to study charge transport and storage in ultra-thin, oxide-nitride-oxide (ONO)
heteroinsulator nanostructures, which find application in high density, low-power, low voltage,
nonvolatile semiconductor memories (NVSMs). In particular, we will examine a new type of
SONOS device called a NROMTM structure, which is programmed with hot electron injection and
is able to store 2 bits of information spatially isolated over source and drain regions of the device.
In addition, each of these bits has the possibility of multi-level storage opening the possibility for
ultra-high density NVSMs. The study of device physics, the technology and potential applications
of ultra-thin oxides are also relevant to the thrust into low-power CMOS circuits so our study will
encompass experimental nanoscaled SONOS devices fabricated with fully-depleted silicon on
insulator (FDSOI) CMOS technology. Characterization of traps at the semiconductor-insulator-
gate interfaces and in the bulk insulator is an essential factor in predicting the performance and
reliability of nanoscaled semiconductor devices, such as SONOS NVSMs. Our research program
will investigate the fundamental limitations in nanoscaled SONOS NVSMs.
The intellectual merit of this proposal resides in a vision where future advancements in
nonvolatile semiconductor memory storage will play a central role in nanoscaled science and
engineering. Our program integrates research and education to explore high-density NVSMs with
unique heteroinsulator structures. The experimental and theoretical study of novel devices will
entail the use of physics, chemistry, materials science and device electronics at the nanoscale with
considerable opportunity to explore new frontiers through the generation of new knowledge.
The broader aspects in our program will advance diversity in the nanoelectronics workforce
and provide intellectual technology transfer, integration of research and education, and promotion
of partnerships. We have excellent educational and outreach programs to increase diversity with
opportunities in nanoelectronics, especially semiconductor devices . an important area to
maintain US leadership in a global economy. This research program provides an excellent vehicle
for student research and education, minority student outreach and partnerships with industry.